Prescriptive Models for Improving Subjective Probability Judgments

Decision making in public policy as well as commercial settings is often
complicated by disagreement among experts regarding estimates,
forecasts, and even the nature of the problem under discussion.
Moreover, it is often necessary to make a decision in the face of such
disagreements; collecting the required "hard evidence" may simply be
infeasible within a reasonable period of time. Thus, it is important to
find ways to use the valuable knowledge that experts possess. Expert
knowledge often is best characterized as "opinions" that can be
expressed as probability judgments, the expert's assessment of the
chance that something is true. Typical public-policy settings where
expert probability judgments are used include energy (especially nuclear
power and engineering), military, intelligence and security, environment
and health policy, and economic forecasting. In commercial settings,
expert judgments play large roles in overall strategic decision making
and situations such as oil and gas exploration and pharmaceutical
research and development.

No simple answer exists for improving experts' probability judgments.
Psychological research has documented many ways in which such judgments
are biased. Because different psychological processes may be at work in
different situations, methods to counteract the corresponding biases
must be adapted to the specific situation. The proposed research offers
three practical methods for improving experts' probabilities. All three
methods are grounded in psychological theory and are designed to be
applicable to a variety of probability-assessment situations. Each
method will be subjected to rigorous evaluation to demonstrate its
effectiveness. The three methods further provide models for how a
scientist can use psychological results and theory for developing
additional adjustment methods for improving expert probabilities.